Numerical Methods for Global Ocean Models

In this project, the P.I.'s will investigate numerical methods leading to development of improved global ocean models suitable for climate studies. Enhancements will be added to a primitive equation model and a filtered model (both developed by the P.I. and collaborators). Major focus will be on : 1. Domain decomposition strategies and boundary-fitted coordinates to add boundary layers with higher order physics; 2. Conservation properties of efficient finite difference schemes; 3. Composite overlapping grid techniques for embedding the mixed layer in the larger models; and 4. Comparison of the PE model with tropical Atlantic data.